Ground Based Infrared Measurements in the Arctic

This Arctic project will measure a number of trace gases which play an important role in the destruction of stratospheric ozone. The measured species will include hydrogen chloride, methane, nitrous oxide, nitrogen dioxide, ethane, water vapor, nitric acid, chlorine nitrate, carbon dioxide, the chlorofluorocarbons F11 and F22, ozone and carbon tetrafluoride. The measurement will be made from the ground by a Fourier Transform Infrared (FTIR) spectrometer operating in two modes. The primary mode will be to view the rising (or setting) sun at high spectral resolution and to deduce the atmospheric constituents by observing the absorption of solar infrared radiation and simultaneously deduce the altitude distribution of some of the trace gases. The secondary mode will be to use the FTIR at low resolution to measure emission from trace gases during the polar night when the sun is unavailable as a source of radiation. This project is important for the study of global change, especially for the effects of man-made chlorine bearing compounds on the ozone layer.